Topology of Smooth 4-Manifolds

DMS-0204579
Selman Akbulut

Proposer plans to investigate the topology of smooth 4-manifolds by
decomposing them into Stein pieces which are easy to understand
(since they turn out to be Lefschetz fibrations over the 2-disk). He
would like use the techniques of complex and symplectic manifolds to
understand the restriction this decomposition imposes to the topology
of the original manifold. Proposer hopes to apply these techniques to
attack some unsolved problems of 4-dimensional topology, such as
finding 4-dimensional fake s-cobordisms, and to the problem of
constructing a fake S^3 x S^1. Proposer also plans to work on the
topological problems arising from complex algebraic geometry, such as
problems coming from the complex conjugation, branched covers and the
curve counting problem in real algebraic geometry.

Proposer plans to investigate structure of 4-dimensional manifolds by
decomposing them into pieces that are topologically easier to
understand (4-manifolds are spaces which locally look like
4-dimensional Euclidean space-time we live in). These smaller pieces
carry certain `natural complex structures' which analytical
techniques apply. By these techniques Principal investigator hopes to
construct certain 4-manifolds believed to exists but not yet have
been found. One of the reasons 4-manifolds are of interest is because
of the physicists model of the 10-dimensional universe which consists
of a 4-dimensional space-time plus 6-dimensional complex piece.